The Site of Action of Volatile Anesthetics

Several species of the nematode, an invertebrate widely used in genetics research, are very sensitive to volatile anesthetics while some species have a low sensitivity. The differential sensitivity in this animal is caused by recessive mutations in the gene unc-1. This project entails studying the mechanism of volatile anesthetics action in the nervous system of the nematode by identifying the components of the site of action. Additional spontaneous mutations in the unc-1 gene and fragments of the chromosomes which contain the gene will be identified, leading to the cloning of the gene. The research will make it possible to identify the proteins coded by the unc-1 gene and provide necessary information about the molecular biology of animal responses to anesthetics.